Mathematical Sciences: Laplacians on Reimannian Manifolds

The principal investigator will analyze the geometry and topology of manifolds by comparing different partial differential operators defined on the manifold. It is known that there is a relationship between certain invariants of a partial differential operator and the geometry of the space on which the operator is defined. The principal investigator will use heat kernel methods to approximate the invariants associated to the differential operators. He will use this approach to try to find an index theorem for a Laplace operator which was originally introduced to study certain problems in physics. The index theorem is the main tool used to link the topology and geometry of a space to the differential equations defined on the space. Hence if the investigator can find an index for this particular Laplace operator he will have established a method which can be applied to the study of the geometry of the space. It will be important to understand the role of curvature in such an index theory. A manifold is the mathematical object which formalizes our understanding of form, shape, and distance; a curved surface is an example of a two dimensional manifold. Partial differential equations are the equations used to describe most physical phenomena. The study of the solutions of these equations is a major branch of mathematics in itself. The principal investigator will study problems which involve both of these topics and the relationship between shape and solutions of partial differential equations. //